Study of the Magnetic Properties of Rare Earth Doped Fluoride Glass Systems: A Search for Spun Glass

This is a Research Experiences for Undergraduates Site grant. The award permits undergraduate students to participate in a research program in the materials field under the supervision of faculty members actively engaged in research. Students are recruited from the student body at the State University of New York at Brockport, Erie Community College, and Monroe County Community College. Strong emphasis is placed on recruitment of under-represented minority and economically disadvantaged groups. Students are trained in operation and construction of scientific instruments typically used for research in low temperature physics, planning of experiments, analysis of data, familiarization with the scientific literature, report writing, and oral presentation of results. Funding is provided for participation by four students. Research is performed on magnetic properties of rare earth doped fluoride glass systems with interest in spin glass systems. The research is performed in teams of two students and one faculty member, and continues throughout the year. Students present their results at national conferences in low temperature physics. The program enhances current research activities as well as adding to the number of scientifically trained individuals. It is hoped that this hands- on experience will serve as a stimulus to attract and retain highly-gifted students into careers in teaching and research.